From Museums, to Movies, to Marineland: W.D. Burden, G. K. Noble, and the Marketing of Animal Behavior Research

This project focuses on the interpenetration of science, education, and entertainment in the study and promotion of animal behavior research by Gladwyn Kingsley Noble and William Douglas Burden at the American Museum of Natural History from roughly 1928 to 1950. Adept entrepreneurs, both Noble and Burden recognized the importance of film in behavior research and its significance as a medium for educational and promotional purposes. The development of film represented an important technological breakthrough in the study of behavior, for the biologist could now isolate animal motion and behavior on a medium that could be studied and manipulated at will. Natural history films, however, served a dual function, for these films could be shown to the public as education and entertainment, a marketing strategy that Noble and Burden employed in promoting their Department of Experimental Biology, founded at the American Museum n 1928. The interplay of science and entertainment in the careers of Noble and Burden reached its culmination in the late thirties with the establishment of Marineland, the first multi-species oceanarium of its kind, 18 miles south of St. Augustine, Florida. Serving as a research center, entertainment park and film studio, Marineland represented a new approach to selling science in 20th century American culture fed on mass media. The object of study was also an important tool in generating mass appeal. Capitalizing on the popular image of the dolphin as a "friend to gods, children, and men," Marineland cultivated the dolphin itself as a marketing ploy. As a case study, this project bears directly on the history of animal behavior studies in America and on issues regarding the use of mass media in the popularization of science within 20th century American culture.